Efficient Parallel Algorithms

Optimal parallel algorithms are those whose total work (total number of operations) matches the serial complexity of the problem, corresponding to optimal (often linear) time sequential algorithms. The recent trend of designing fast and processor- efficient algorithms has produced important new parallel techniques and paradigms. The main goal in this research is to pursue a research effort in this direction with a particular emphasis on a sample of specific problems in arithmetic computations, graph theory, and VLSI routing.